Undergraduate Mathematics Summer Research Institute

This is an eight week Summer Undergraduate Research program at SUNY College at Potsdam, NY for six students, and three student leaders. A distinct aspect is that two major institutions are involved (SUNY Potsdam and Clarkson University).

Participant students will involve in research in the areas of Group theory, Graph Theory, and Topology.

The goal of this program will be to build the participants' confidence in their ability to do research independently and to stimulate their interest in pursuing mathematics. To expand the students' horizons, there will be one talk each week by a guest expert.